Elementary, Secondary, and Informal Education: The Real Astronomy Experience: An Exhibit for ISE Centers

The Lawrence Hall of Science at the University of California at Berkeley will develop the "Real Astronomy Experience (RAE)" in which science center visitors will explore the universe by controlling and viewing robotic telescopes via the Internet; by using image processing software to understand the images they capture; and by capturing images with a hands-on, functional telescope equipped with a Charge-Coupled Device (CCD) camera to learn how a modern telescope image-capture system works. Guided by project materials, visitors learn about the cosmos, tools and methods of scientific research, data analysis and the general progress of modern astrophysics.